The PUMP Algebra Project

ABSTRACT 9454356 Swafford The PUMP Algebra Project The Peoria Urban Mathematics Plan (PUMP) is a 3.5-year project to reform the teaching of mathematics in Peoria's middle and high schools, with a special focus on increasing minority student participation in the algebra track (circa 1/2 of Peoria's student population is African American). To this end, 48 teachers (grades 5-9) are selected (in teams of 2-4 from each of Peoria's 12 middle and 4 high schools) to attend a 3 sequential summer teacher enhancement program that focuses on reflective pedagogy, and content and technology enhancement. Each summer consists of a 4-week institute: Summer 1 focuses on rational numbers and proportional reasoning; Summer 2 looks at algebra, stressing patterns and functions; Summer 3 looks in depth at how to implement PUMP algebra ideas and techniques, and integrate them into the curricula that are in place in the participants' schools. School year follow-up consists of 6 1/2-day seminars, as well as 4 site visits by PUMP senior staff to each participating teacher's classes. The program involves building principals, and draws on community resources, such as, for example, an existing Urban League outreach program for elementary students. An external evaluation, complementing on-going internal evaluations, focuses especially on documenting student change. To disseminate the project, 4 selected mid-sized cities around the country send observers to the project, and some 70 cities are networked by a project newsletter. Cost sharing is 64% of the NSF contribution.